The Thermal and Denudation History of Tertiary Metamorphic Rocks in the Ailao Shan-Red River Shear Zone, Yunnan, PRC

The continued convergence of India northward into Asia requires that intraplate shortening be taken up by crustal thickening along major thrusts and lateral extrusion of crustal blocks along strike-slip faults. Assessment of the relative contributions of these two mechanisms requires detailed measurement of vertical and horizontal motions on the major faults. The Ailao- Shan Red River fault in Yunnan, PRC is a Tertiary ductile strike- slip zone with up to 500km of left-lateral motion. This study will date the time of the end of left-lateral motion and start of the present regime of right-lateral and normal fault motion. It will also resolve the uplift rate during faulting by 40Ar/39Ar analysis of the exhumed fault rocks. The results of this study will significantly add to our understanding of the lithospheric response to crustal collision.